CPS: Synergy: Architecture for Future Distribution Systems Including Active Consumers with Rooftop Solar Generation

Power systems have seen many changes over the last decade including the increased penetration of renewable generation, electric vehicles and new technologies for sensing, communication and control of a Smart Grid. The most significant impact of these changes are being felt at the consumer level. The ability for consumers and end devices to buy and sell energy and related services in a dynamic and interactive manner is expected to create a transactive energy market as highlighted in the Dec 2014 report of GridWise Alliance. Modeling and preparing the physical system to respond to the somewhat unpredictable behavior of active consumers over a cyber-infrastructure will be critical for maintaining grid reliability. Understanding the impact of such active consumers on the operational and business policies of the distribution utility requires advances in core system science that spans the areas of power engineering, economics, statistical signal processing, game theory, distributed control, multi-agent systems and cyber security. In conjunction with industrial partners, Westar Energy (the largest electric company in Kansas) and Kansas City Power and Light, the PIs plan to develop an architecture that requires little change to the existing investment in power distribution systems while allowing for the dynamic, adaptive control required to integrate active consumers with current and future combinations of high-variability distributed power sources, such as Photo-voltaic (PV) generators and storage batteries.

In contrast to prior related efforts that primarily focus on demand response and distributed generation management with a single home/user centric approach, the proposed approach takes a holistic system perspective that includes cumulative modeling of multiple stochastic active consumers and the cyber infrastructure over which they may interact. Specific research thrusts include: (1) a general, extensible, and secure cyber architecture based on holonic multi-agent principles that provides a pathway to the emerging area of transactive energy market in power distribution systems, but also provides foundation for other engineered systems with active consumers; (2) new analytical insights into generalized stochastic modeling of consumer response to real]time price of electricity and the impact of such active consumers on grid reliability and security, and (3) novel methodology for comprehensive distributed control and management of power distribution systems with active consumers and high penetration of distributed renewable resources. Active consumers are an integral part of the Smart City vision where cyber systems are integrated into the transportation, energy, healthcare and biomedical, and critical infrastructure systems. Successful completion of this project will result in modeling, control, analysis and simulation architectures for all such active consumer driven CPS domains. The resulting gains in operating efficiency, economics, reliability and security will result in overall welfare for the society.